Symposium on Applications of Isotopes and Radiation in Conservation of the Environment, March 9-13, 1992

This is an award to provide support for international travel by Dr. Thomas D. Waite who will participate in the International Symposium on Applications of Isotopes and Radiation in Conservation of the Environment. This symposium will be held at Karlsruhe, German from March 9- 13, 1992. He will present a paper titled: High Energy Electrons - Innovative Treatment for Detoxifying Waste Streams and Contaminated Industrial Sites. This paper results from research he is currently conducting under NSF Grant No. 91-08033. He will also present a status report of work being conducted by the American Society of Civil Engineers Task Committee on Irradiation Treatment of Biological and Industrial Wastes.